Engineering Technology Instruction for the 21st Century

This project is aimed at strengthening and modernizing academic preparation in Electrical and Computer Engineering Technology. Employers have increased academic hiring requirements commensurate with revolutionary developments and growth of emerging computer related technology. Minorities who are expected to account for a growing percentage of the workforce are grossly underrepresented in technical occupations. This exemplar project employs a comprehensive strategy to improve student mastery of engineering technology, heighten student academic participation and achievement, emulate an industrial workplace environment, and enhance academic and employment opportunities. Activities in two fundamentals laboratories will be restructured to foster improvements in the mastery of laboratory skills. Project activities include the design and development of online instructional resources on the departments' local area network, computer based data acquisition and analyses, and multimedia courseware for presentations and lectures. Also included in the activities is an extensive evaluation component and a national and regional program for dissemination of project methodologies and results.